SBIR Phase II: Gentle Atomic Level Chemical Mechanical Smoothening (CMS) of Gallium Nitride Substrates

This Small Business Innovation Research (SBIR) Phase II project will develop and scale-up an industrially robust and low cost chemical mechanical smoothening
(CMS) process to produce atomically polished gallium nitride (GaN) on silicon substrates for high power and high frequency applications. As GaN is mechanically hard and
chemically inert, traditional surface polishing processes have resulted in significant
surface damage which negatively affects the electrical performance. In contrast, the CMS
process forms a soft layer on GaN surface which can be removed by nanoparticles. In the
Phase II of this project, the company plans to further optimize and scale-up the CMS
process. In conjunction with the compound semiconductor chip manufacturers and
academic partners, the company's plan is to further validate the polishing technology by
fabricating and testing the performance of high electron mobility transistors. The research
team members are internationally recognized experts and are in an excellent position to
execute the research plan and attain the project goals.

The commercialization of the proposed polishing technology is expected to significantly
impact GaN based semiconductor technology used for high frequency, high power
microwave devices in wireless mobile communication and radar defense systems. This
process will accelerate commercialization of GaN on silicon technology by increasing
yield and reducing manufacturing costs.